Compilers as Cartographers and Architectures as Navigators

This research will explore which high-level information the architecture can use and the compiler can provide to exploit, predict, and react to program behavior. The compiler will give the architecture control- and data-dependence information in aggregate forms or using new high-level instructions and the architecture will further augment this information with run-time information to improve perfor-mance. To exploit this information, this research will also explore new architectural functionality, flexibility, caching policies, etc.

This research will also explore using symbolic data volumes and reuse distances parameter-ized with run-time values, and the architecture will decide the policies; how much and which data to prefetch, stream, or cache and with which replacement policies. This investigation will use the Scale compilation system to produce program "road maps," and will use simulation to explore advanced architecture features that employ navigation of the maps. The benefit of this research will be to sig-nificantly improve scientific and next generation software performance through a synergy of compiler information and new architectural mechanisms.